1999 Gordon Conference on Atomic Physics; Plymouth, NH; July 4-9, 1999

Support is provided for student participation in the 1999 Gordon Conference in Atomic Physics to be held in Plymough, New Hampshire, July 4-9, 1999. The material presented in this conference is timely and strongly overlaps the AMO Program.